Conference: Developing US-Moldova Environmental Research Through U.S. Participation in the Third International Conference "Ecological Chemistry 2005" in Moldova, Spring, 2005

0531542
Malin

Fifteen U.S. scientists, including three graduate students, will attend
the Third International Conference "Ecological Chemistry - 2005" scheduled to be held
May 20-23, 2005 in Chisinau, Moldova. Intellectual merit: The conference will discuss
ecological chemistry of water, air and soil; waste management; chemical risk assessment;
ecological policy and legislation. Participation by the U.S. environmental scientists and
students will allow them to witness first hand reports on little-known environmental
conditions in the Republic of Moldova and surrounding regions of Romania and Ukraine.
Broader Impact: Attendance at the conference will offer significant opportunities for
direct interaction with Eastern European colleagues and students, fostering development
of international scientific collaborations. Several of the invited U.S. scientists have
already begun collaborations in Moldova and will be present to help their colleagues
explore opportunities for collaborative research.